Collaborative Research: Collaborative RET Site - Inspiring the Next Generation of a Highly-Skilled Workforce in Advanced Manufacturing and Materials

This award provides funding for a three year standard collaborative award to support a Research Experiences for Teachers (RET) in Engineering and Computer Science Site program at the University of Dayton (UD), Central State University (CSU), and Wright State University (WSU) entitled, "Collaborative Research: Collaborative RET Site-Inspiring Next Generation High-skilled Workforce in Advanced Manufacturing and Materials", under the direction of Dr. Margaret Pinnell, Dr. Leanne Petry, and Dr. Ahsan Mian. The University of Dayton will serve as the lead institution on this collaborative Site.

The new era of manufacturing will require highly skilled STEM professionals. As such, educators need to inspire youth to pursue STEM disciplines. This collaborative RET Site will leverage and sustain a prior UD RET Site and provide a total of 54 in-service and pre-service middle and high school STEM teachers, 18 per year over three years, with an intensive and transformative six week real world research experience that is thematically centered on materials and advanced manufacturing, a regional strength and economic cluster. The Site will facilitate this immersion by placing teachers teachers with research mentors at one of the three participating universities to work on projects that connect with regional strengths in advanced manufacturing and materials. The RET experience will be enhanced through a materials boot camp, industry and laboratory tours and extensive interaction with a wide variety of STEM professionals through the Dayton Regional Stem Center (DRSC).

The Site will target teachers from Ohio Region 10 districts eligible for School Improvement Support, and from partner schools (Dayton Early College Academy (DECA) and Dayton Regional STEM School (DRSS). After participation in this RET, teachers will continue their professional development through ongoing engagement with the PIs at all three institutions and the DRSC and will be prepared for leadership roles in their K-12 setting. Participants will achieve long-term collaborative partnerships with the university research community, engineering professionals, and the DRSC.

The project will have a significant impact on the Dayton area and the engineering community nationwide by promoting engineering in K-12 STEM curriculum and recruiting teachers from high-needs and urban schools. It will also strengthen regional partnerships and collaborative relationships that support both STEM education at all levels and advanced manufacturing and materials development.